Texas Geometry and Topology Conference

The Texas Geometry and Topology Conference has been held spring and fall since its founding in 1989, a total of 35 times. The conference has become an extremely successful semiannual event in the Southwest. The next series of conferences will have six primary sponsoring universities: The University of Texas at Austin, Texas A&M University, Rice University, the University of Houston, Texas Tech University, and Texas Christian University. The conference is designed to enhance both the educational and the research atmosphere of the active community of geometers and topologists in Texas and the surrounding states. The conference is committed to bring researchers of national and international stature to discuss their research and to interact with mathematicians from Texas and surrounding states. Summaries of talks with notation of important results have been publicly reported for some time and will continue similarly in the future.

By design, the Texas Geometry and Topology Conference has two high-impact foci. First, the conference makes it possible for the community of geometers and topologists from Texas and surrounding states (a huge geographic region) to meet and share mathematics on a regular basis. This both stimulates individual research and generates productive cooperative efforts between schools. Second, the conference is committed to the strengthening and enrichment of the mathematics personnel base. In order that there be no barrier to participation, the conference is widely advertised, participation is open, and there are no registration fees. Graduate students, junior faculty, women, minorities, and persons with disabilities are especially encouraged to participate and to apply for support. More information can be found on the conference website:
http://www.math.tamu.edu/%7Etgtc/archive/